Incorporation of Modern Microscopy Techniques into the Microbiology Curriculum at the University of Wisconsin-La Crosse

Advanced microscopy techniques will be incorporated into the microbiology laboratory curriculum. A scanning electron microscope, critical point dryer, and sputter coater will implement improvements in the Microtechnique and Electron Microscopy course. They will allow the students to receive up-to-date instruction in methods of specimen preparation and SEM operation as well as first hand knowledge about biological fine structure. The SEM will also be used to demonstrate relevant biological structures to students in other classes. A photomicroscope will allow students in Microtechnique and Electron Microscopy to receive instruction in photomicrography and Independent Research students to record data for presentation. Phase contrast, epifluorescence, and interference microscopes will be used by students in Aquatic Microbial Ecology, Bacterial Diversity, Bacterial Physiology, and Pathogenic Bacteriology to identify, observe and characterize microorganisms, their structures, and activities. The university will provide 50% matching funds.